Individual Nomination of Amelito Enriquez for the Presidential Awards for Excellence in Science, Mathematics and Engineering Mentoring

Dr. Amelito Enriquez is a Professor of Engineering and Mathematics at Canada College - a federally designated Hispanic-serving community college in Redwood City, California. Since joining Canada College in 1995, he has been a leader in the Mathematics, Engineering, Science Achievement program and has designed and implemented a variety of federally funded programs including the Student On-ramp Leading to Engineering and Sciences program and the Mathematics, Science and Engineering Transfer Scholarships program. The significant mentoring elements of these programs have helped Canada College increase its engineering enrollment over 600%, with significantly higher rates of increase in enrollment and success of science, technology, engineering and mathematics students from underrepresented ethnic groups compared to other ethnic groups.